MRI: Development of a Life-Size 3-D Manipulator System for Study of Multi-Joint Human Arm Dynamics and of Object Manipulation

0216550
Mussa-Ivaldi
The goal of this project is to design and develop a specialized robot manipulator with a state-of-the-art augmented-reality display. This development project is a collaboration of world-leaders in engineering, robotics, virtual-reality, motor system neuroscience, and rehabilitation; affiliated with the Rehabilitation Institute of Chicago (RIC), Northwestern University, the University of Illinois in Chicago and Barrett Technology Inc, an advanced robotics company based in Cambridge, MA. This system will be a natural extension of technologies that are currently employed at RIC's Robotics Lab.